U.S.-France Cooperative Research: Dissected Dynamics of Musical Instruments

9216799 Weinreich This three-year award supports U.S.-France cooperative research between Gabriel Weinreich, University of Michigan, and Xavier Boutillon of the Musical Acoustics Laboratory, University of Paris VI, in computer studies of the dynamics of musical instruments and the synthesis and reproduction of sound. This project extends the previous work of the investigators on a digital bow, a computer simulation, where a real physical string is bowed by an electrodynamic force controlled by a ccomputer. The objective of the research is to continue to utilize computer simulations in studying the dynamic processes by which musical instruments are set and maintained in oscillation. The U.S. investigator brings to this collaboration considerable expertise in basic physics. This is complemented by the French investigator's work in acoustics and musical instruments. The mechanical and physical processes of vibrating instruments are not only of interest in the immediate area of musical acoustics, but also have important implications for other fields, such as structural vibration and mechanics. In addition, the project addresses problems of replacing parts of a mechanical system with a computer programmed to operate in real time. These efforts could have important consequences in the general area of digital control systems. ***